Computer Workstations for a VLSI Design Course

The Department of Mathematics and Computer Science of California State University-Hayward will offer a course in Very Large Scale Integrated Circuit (VLSI) design. The course will start with single gates in NMOS and CMOS and continue through to the study of medium and large scale integrated computer components. To provide a laboratory for the course the Department will purchase three Sun 3/160C workstations and use software developed at Berkeley. The course will provide a solid foundation in VLSI design for advanced undergraduate majors, many of whom will work in industry.